1997 AMS Summer Research Institute, "Differential Geometry and Control"

1997 AMS Summer Research Institute on "Differential Geometry and Control" The American Mathematical Society's long-standing series of three-week long summer research institutes bring together between 100 and 300 mathematicians actively working in a particular field of mathematical research. Emphasis is placed on instruction and information exchange at a very high level, including lectures by distinguished mathematicians in related fields designed to promote interaction between participants while broadening their mathematical perspectives. Members of the Organizing Committee for the 1997 Summer Research Institute are: Professor Hector J. Sussmann, Rutgers University (Chair) Professor Henry Hermes, University of Colorado at Boulder (Co-chair) Professor Guillermo S. Ferreyra, Louisiana State University Professor Robert B. Gardner, University of North Carolina at Chapel Hill The Institute will be held at Boulder, Colorado, on the campus of the University of Colorado between June 29 and July 19, 1997. Staff of the American Mathematical Society will provide administrative support for the conference.